Fission Dynamics Studies

This grant provides travel costs and incidental expenses associated with international collaborative studies of nuclear fission by Texas A and M faculty members, and scientists of the Flerov Laboratory in Moscow. Experiments will be carried out using the facilities at both institutions using heavy ion beams to examine the mechanisms and time scales of the processes by which heavy ions fuse with heavy element target nuclei, and later emit particles and radiation both before and after fission.